Collaborative Research: Phylogeography, Ecology and Reproductive Isolation in the Fundulus Notatus Complex

One of the greatest challenges in biology is to explain the levels and patterns of species
diversity. Hybrid zones, where closely related species co-occur and hybridize, provide
an ideal setting in which to study the processes that generate and maintain species
diversity. This research will combine field observations, controlled laboratory
experiments and modern molecular tools to address fundamental questions regarding
the distributional patterns observed among three topminnow species in the Fundulus
notatus species complex. Throughout the Midwestern and Southern United States, the
species encounter one another in numerous hybrid zones, making them an ideal group
for study.
The proposed research will comprehensively address the evolutionary history of the F.
notatus species group and will increase our understanding of the role evolutionary and
ecological processes play in producing and maintaining the species diversity we
observe today. Moreover, this research has important conservation implications and will
be of interest to various state agencies. The research program will integrate teaching
and research by involving undergraduate and graduate students in the research
enterprise at the two diverse universities. Personnel active in the research will
participate in existing outreach programs aimed at recruiting underrepresented groups
into the sciences and improving science literacy in pre-collegiate students.